Seismic Characterization of Oceanic Crustal Structure in theRegion of ODP Site 504-B

The oceanic crust has frequently been modeled as relatively uniform in thickness with a characteristic velocity structure composed of linear gradients that do not generate reflectors in vertical incidence seismic profiling. Recently, however, improved profiling techniques and data processing capabilities have revealed that the lower oceanic crust in some regions has a distinct suite of low-angle dipping reflectors. A few of these events cross the entire crustal section and may terminate at depth in the uppermost mantle. The distribution and origin of these events is critical to understanding the processes that form the oceanic crust and the subsequent development of the stress field in the oceanic plate. The present award will analyze previously collected data in the vicinity of ODP site 504B in the eastern equatorial Pacific. Future drilling is planned at this site to extend the hole into the lower crust. Analysis of the seismic reflection data will allow the drilling results to be placed in a proper regional context and should provide constraints on the nature of the crust producing the reflectors. The project represents the first research support to Dr. Zehnder who has recently completed her doctoral research on the deep crustal structure in the North Atlantic.